Normal Subgroup Structure of the Groups of Rational Points of Algebraic Groups and of Their Special Subgroups

This award provides funding for an investigation of the normal subgroup
structure of groups of rational points of algebraic groups over
general as well as over special (primarily, global) fields. The
principal investigator attempts to prove a new conjecture on
solvability of finite quotients of the groups of rational points of
simple algebraic groups over arbitrary infinite fields.
He also plans to analyze finite quotients of the multiplicative group
of a finite dimensional division algebra in order to obtain their
reasonable classification. Another central problem is investigation
of the Margulis-Platonov conjecture for special unitary groups over
global fields. The principal investigator collaborates on these problems
with Gopal Prasad, Yoav Segev and Gary Seitz. He also plans to work
with Gopal Prasad on a joint book project in the congruence subgroup
problem.

Questions related to the normal subgroup structure of linear groups
have historical roots in the 19th century (Galois, Jordan, Dixon),
and have been an area of active research in the 20th century. Recently,
new techniques for analyzing this problem for anisotropic groups
over general fields have been discovered in the joint work of the
principal investigator with Y.Segev and G.Seitz. These techniques enable
one to investigate groups over general fields using methods of the
theory of valuations, which were previously used only in the
number-theoretic setting of global fields. This approach fits into
the general area of investigation of the congruence subgroup problem,
which is connected with other fundamental problems in number theory,
currently applied in data transmission, data processing and communication
systems.